International Workshop on Wavelets in Statistics; October 12-13, 1997; Durham, NC

DMS 9700733 INTERNATIONAL WORKSHOP ON WAVELETS IN STATISTICS ISDS, Duke University, Durham, NC, USA. October 12-13, 1997. Brani Vidakovic Abstract. Statistical wavelet modeling and computational research have, in recent years, become burgeoning areas in both theoretical and applied statistics, and are beginning to impact developments in statistical methodology and in various applied scientific fields. Wavelet ideas are developing in statistics in areas such as regression, density and function estimation, factor analysis, modeling and forecasting in time series analysis, spatial statistics, with ranges of application areas in science and engineering. The emerging interests in Bayesian statistical modeling and wavelets is generating exciting new directions for the interface of two research areas, with significant potential for future impact on applied work. This international research workshop, focused on the interface of wavelets and statistical science, is held in recognition of the recent growth and current vibrancy of research at the interface of the disciplines. The meeting will provide an opportunity to summarize the current status of research on wavelets in statistics, to explore the applied impact that statistical wavelet modeling and wavelet in statistics are having, and to suggest and stimulate novel theoretical, methodological and computational research directions. The workshop is planned at an opportune time to assess and address the dual question of the future prospects: for significant contributions of wavelet ideas to statistical science and application, and for furthering watelet-based technology through the use of statistical concepts and models.